Second International Conference on Systems Biology (ICSB2001), November 4-7, 2001 at Caltech, Pasadena, CA

The goal of Systems Biology is the construction and experimental validation of mathematical models that explain and predict the behavior of biological systems. Systems Biology is a synergistic integration of theory, computation and experiment. Intuition is not reliable when confronted with the highly interconnected reaction networks that underlie biological processes.

The Second International Conference will be held in November 2001. It seeks to promote the growth and development of the field of Systems Biology. The goals include: establishing the foundations of the field; presenting new results; identifying promising directions; fostering communications; and helping to organize the community. A top priority is to adopt a sound foundation for theory, software and experiment. The meeting seeks to be a specific forum for Systems Biology.